Conference on Mathematical Geophysics, Kibbutz Ramat-Rachel, Israel

This grant supports travel of ten US scientists to the 18th Conference on Mathematical Geophysics to be held during the week of 18-24 June, 1990 at the Kibbutz Ramat-Rachel in Israel.